Scaling limits of growth in random media

Probability, as a field, tries to address the question of how large complex random systems behave. An important class of probabilistic models deals with growth in random media. These can be used to model how a cancer grows in a particular organ, how a car moves through traffic on a highway, how neurons move through the brain, or how disease moves through a population. The purpose of this project is to understand important models for growth in random media, both in terms of developing statistical distributions associated with the models and in terms of understanding in what sort of systems these models are relevant. The project will leverage new tools to solve previously inaccessible problems. The project includes a range of broader impact activities, including the organization of scientific, education, and outreach programs; advising and mentoring junior researchers; and serving on editorial and scientific boards and committees.

Stochastic PDEs, random walks in random media, interacting particle systems, six vertex model, and Gibbs states are active areas of study within probability, equilibrium and non-equilibrium statistical physics, combinatorics, analysis and representation theory. This project touches on problems in and draws upon tools from each of these areas. In particular, this project will probe (1) the nature of invariant measures and mixing times for various growth models in contact with boundaries, (2) the behavior of multi-class particle systems and the propagation of perturbations in growth dynamics, and (3) the fluctuations of interfaces, in particular the likelihood of upper and lower deviation probabilities along with various applications. By marrying integrable structures (e.g. Yang-Baxter equation, symmetric functions, determinantal processes, matrix product ansastz) with probabilistic methods (e.g. couplings, Gibbsian properties, hydrodynamic / stochastic PDE limits) the PI will solve problems in both areas which were previously inaccessible from either approach alone.